Dissertation Research: A Phylogenetic Analysis of the Major Lineages of Fishes Utilizing Direct Sequencing of Ribosomal RNA

This study will determine the times of origin and evolutionary relatedness of the major groups of primitive fishes (lampreys, hagfishes, sharks, rays, lungfishes, coelacanth, sturgeons, paddlefish, gars, and bowfins as well as selected species of advanced fishes, whose distinctive morphologies and habitats have arisen relatively recently. Insights into the evolution of fish groups whose ancestors gave rise to all land vertebrates is crucial to our understanding of the evolutionary mechanisms and adaptations leading to the highly diversified and complex vertebrates existing today. The evolutionary tree for these fishes will be constructed on the basis of comparing the sequences of their genes inferred from the sequence of a gene product, RNA. Once the evolutionary tree for fishes is constructed from these molecular data, it will be compared with trees constructed form other kinds of traits, for example morphological differences, in order to determine what combination of traits is most effective in resolving evolutionary relationships. Once the most likely evolutionary tree for the fishes is established, it will be possible to investigate the kinds and rates of evolution that have led to the diversity of fish species that exist today. Once the "history" of fish evolution is established, it will provide insight about the kinds of constraints and opportunities that exist for a species when it faces altered environments (natural or human influenced).